Environmental Studies

Abstract - Darrell Pepper CTS 980-5480 The proposal is to partially support attendance at the International Conference ENVIROSOFT 98 which will focus on computational techniques applied to environmental studies. The conference will assemble scientists and engineers working in fields requiring computational methods in environmental transport and diffusion. The conference is directed towards exchanging technical expertise, identifying the state of the art, and the projection of future needs and capabilities in the areas of species transport and environmental fluid flow. The technical papers will be published in a bound Proceedings.